Quantum theory of two-atom, few-atom, and many-atom systems

Further development and application of a cross-discipline theoretical framework for
two-atom, few-atom, and many-atom quantum systems is proposed. The theory, the
multiscale quantum-defect theory, asserts that universal properties exist at different
length scales for such systems, and provides methods to uncover and study them.
It has been developed by the P.I. over the past few years, and has been demonstrated
explicitly for two-atom, few-atom, and many-atom quantum systems. The proposed
research is expected to lead to the development of a new theoretical framework for
studying strongly-coupled many-atom quantum systems and highly excited clusters,
including a first microscopic quantum theory of liquids that goes beyond the liquid
helium. It is also expected to lead to much improved understanding of fundamental
atomic and molecular processes that include, e.g., the interaction and scattering of polar
molecules and the Feshbach resonances in nonzero partial waves in
ultracold atomic interactions.